Digital Govt. Collaborative Research: Integration of Data and Interfaces to Enhance Human Understanding of Government Statistics: Toward the National Statistical Knowledge Network

EIA-0129978
Catherine Plaisant
Ben Shneiderman
University of Maryland Baltimore County

Digital Government: Collaborative Research: Integration of Data and Interfaces to Enhance Human Understanding of Government Statistics - Toward the National Statistical Knowledge Network

This award will support collaborative research with several Federal statistical agencies to develop better statistical data models, to explore the use of SML, to develop better map-querying tools and to integrate other available tools for manipulating, browsing and visualizing tabular data. The goal is to develop better human/computer interfaces for expert users to novices, to increase general statistical literacy, and to provide seamless access to data held by multiple Federal agencies and agencies at other levels of government, in particular state and local data.